Extremal Combinatorics

The PI and his coauthors will work on extremal problems for set
systems or hypergraphs using combinatorial, algebraic,
probabilistic, and topological methods. The basic problem of
extremal hypergraph theory is the so called Turan problem:
determine the maximum number of subsets a finite set can have
without containing some fixed forbidden configuration. This
question, in its full generality, is very difficult, and certain
special cases are famous problems that have been open for over 50
years. Nevertheless, substantial work on closely related issues
has occurred recently, and the limits of this recent progress will
be explored. Although several different aspects are considered
(Ramsey-Turan problems, jumps in hypergraphs, degenerate problems
for simplices), the common theme is to obtain a hypergraph
analogue of the Erdos-Simonovits-Stone theorem, the cornerstone of
extremal graph theory.

The general topic of finite set systems has connections to diverse
areas of mathematics (combinatorial geometry, design theory,
partially ordered sets, additive number theory), and also to
academic disciplines with concrete applications in everyday life
(coding theory, information theory, optimization and scheduling
problems, computer science). Modern communication would be
impossible without the existence of codes, or objects designed to
relay information faithfully even in the face of distortion.
Extremal problems for set systems play a role in constructing
codes for various situations.